Culture and Cognition Graduate Research Traineeship Program

This proposal outlines an interdisciplinary traineeship program for the study of cognition and environmental contexts. The program brings together psychologist, anthropologists, and other social scientists who are interested in the scientific study of graduate students who will be knowledgeable about both methods and theory in both anthropology and cognitive science. The innovative structural components include psychology, participation in interdisciplinary research seminars meeting weekly throughout their graduate careers and participation in research at several field sites and collaborative research installations already established in locations in many parts of the world by University of Michigan scientists. the students trained by such a program are expected by be uniquely qualified to develop a scientific understanding of cultural aspects of cognitive structures and processes.